Time-Critical Public Archiving of Digital Seismic Data

EAR-0001137
Thurber, Clifford H.

This proposal seeks funds to continue efforts to archive high quality seismic data sets from the University of Wisconsin data archives. This renewal request will support archiving (to the IRIS DMC) the following data sets collected by Professor Meyer's research group: the 1985 and 1990 Kenya Rift teleseismic experiments; the 1982 Mono Lake local array; the 1986-7 Midcontinent Rift experiment (western WI/eastern MN), and a data set collected in 1979 along the South American subduction zone (Tumaco Columbia earthquake sequence). The digital data are accurately timed and the station locations are known with sufficient accuracy to make it a worthwhile effort to preserve the data, given the intrinsic scientific importance of the regions studied and events recorded.